CAREER: Opportunistic and Adaptive Multi-Modal In-Sensor Computing for Artificial Intelligence of Things

This project aims to make everyday smart devices, such as cameras, health monitors, and environmental sensors, more intelligent, faster, and energy efficient. These devices often rely on multiple sensors to understand the world around them, but they struggle to process large amounts of data due to limited battery and computing ability. This work develops new ways for these devices to process information directly where data is collected, instead of sending it elsewhere. It also introduces automated design tools that help create these systems more easily. The goal is to enable affordable and reliable smart devices that can better support applications such as healthcare, safety, and environmental monitoring.

This research advances the design of intelligent sensing systems through three interconnected thrusts spanning circuits, architectures, and algorithms. The first thrust develops new reconfigurable architectures and circuits for the multi-modal in-sensor accelerator to seamlessly move computation to the sensor nodes in the most efficient way. The second thrust focuses on developing novel software-based modality sequencing mechanisms, energy-performance controllers for multi-modal in-sensor accelerators and in-sensor node prediction mechanisms based on graph neural networks to strategize execution paths at the system level. The third thrust integrates these components into a unified framework by developing a large language model-driven accelerator generation platform, supported by structured datasets and automated pipelines. A comprehensive evaluation framework, including prototyping and open source tools, is also established to validate performance across real world scenarios.

The broader impacts of this project include advancing scalable and energy-efficient artificial intelligence of things systems through deployable hardware-software co-designed solutions in collaboration with industry partners. The developed multi-modal in-sensor-computing architectures and toolchains will enable real world deployment across domains such as healthcare monitoring and intelligent surveillance. The project establishes an education and workforce development pipeline through integrated research and training activities, including outreach programs for grades 9 through 12 and specialized summer programs. It further introduces curriculum modules on adaptive multi-modal in-sensor computing at both undergraduate and graduate levels. Open source dissemination of datasets and hardware intellectual property cores, and benchmarking frameworks will support reproducibility and cross disciplinary research. In addition, technical training workshops and seasonal schools will facilitate knowledge transfer, while a national level educational platform will broaden participation in science, technology, engineering, and mathematics fields.